Advanced Computer Graphics and Computer Vision Laboratory

The effects of computer graphics and computer vision on our society are increasingly pervasive. Courses in these fields provide a well established framework for the assimilation of previously learned concepts from mathematics, physics and computer science, and the rigorous development of robust problem solving skills. Pace University will purchase four Sun 3/160S graphics terminals for use on an existing 3/160 system. These will allow the teaching of state-of-the-art graphics and vision techniques. Exposure to this state-of-the-art computational environment will produce more intellectually sophisticated and technically equipped computer scientists.